A Comprehensive Training and Education Program in Statisticsfor Teacher Enhancement in the Mayaguez Region of Puerto Rico

This two-year project will be conducted at the University of Puerto Rico, Mayaguez, and will serve a cadre of twenty teachers of mathematics, fourteen at the secondary level and six at the middle school level. All teachers will come from the Mayaguez area. The project will provide two years of teacher education in the area of statistics, which has recently been added to the secondary curriculum in Puerto Rico. During a six-week summer institute, the teachers will learn statistical concepts and pedagogical strategies through projects and activities. Current curriculum materials such as the Quantitative Literacy Series will be introduced. Staff includes university statisticians and school personnel with expertise in pedagogy. During the academic year, staff will visit the teachers' classrooms to provide support and assistance as the teachers implement the statistics course. In addition, teacher participants will conduct dissemination workshops with their colleagues as needed and as appropriate. This project is significant in its likelihood of building a cadre of teachers with strong statistics expertise in the Mayaguez area. Cost sharing is provided by the University as 10% of the NSF request.